Non-fogging Glass Surfaces

9801070 Heller This project involves the study of mechanisms describing wettable surfaces of glasses that are composed of photoactive oxide semiconductors. Hypotheses describing the chemical origin of the non-fogging properties of titanium dioxide coated glass surfaces, such as by light induced creation of a photoelectret within a semiconductor layer, will be investigated and experimentally verified. %%% The resolution of the fundamental mechanisms for the creation of non-fogging and self-cleaning surfaces and coatings could have a very significant economic impact in that it will result in new approaches to the design and engineering of advanced new materials for a broad range of consumer, automotive, and construction products. ***